SBIR Phase I: Accelerating-Focusing Rectangular Cavity Structures

This Small Business Innovation Research Phase I project is a design/feasibility study of accelerating focusing Rectangular Cavity Periodic Structures and Rectangular Cavity Biperiodic Structures (RCBS)to determine their applicability for commercial uses. Those applications range from Race Track Microtrons (RTM) to electron positron linear colliders as well as for microwave power devices. A 70 MeV compact RTM will be used as a practical test bed to first reduce concepts ideas to practice. A biperiodic on axis coupled rectangular accelerating structure with circular beam holes will be explored. This provides a significant simplification in RTM construction. This RCBS also has a higher effective shunt impedance than previous structures and quadrupole like focusing so it is an accelerating focusing system which, if proved in simulation and hardware, can also be used to good effect in linacs and linear colliders. Recent efforts in particle accelerator design have focused on improving existing accelerating structures, searching for more compact structures, and developing structures with better electrodynamic characteristics. Commercial applications of rectangular cavity structures are apparent for (1) electron-positron linear colliders, (2) electron LINear ACcelerators, (3) mobile Race Track Microtrons, and (4) power microwave devices.